A Study of Hashing Fuctions

Hashing techniques are used extensively in databases and file structures, text retrieval systems, and in hardware. This research is addressing the fundamental question of the relationship between the results of probabilistic analysis of hashing techniques and their practical performance. The goals include investigating: (1) if and how the analytical performance can be achieved in practice; (2) the effect of different distributions of the key sets; and (3) application of hashing and perfect hashing to hardware implementation. Preliminary results obtained thus far are promising and indicate that the analytical performance can indeed be achieved in practice. These fundamental results are useful in other areas such as in signature files for text searching and parallel hashing. By addressing the long open question in the area of hashing, this research enables the users of hashing techniques to have a formal basis for file design and confidence in the expected performance of the resulting file structures.